The Market for Congressional Votes

9422755 Stratmann This project introduces a new approach in studying whether campaign contributions are used to influence legislative decisions. If Political Action Committees (PACs) contribute to legislators in exchange for a vote favoring their interest, legislators, who are expected to vote against constituency interests, have incentives to both accept contributions and to cheat on the vote-for-money agreement. Contracts between PACs and legislators are not legally enforceable - no third party penalizes reneging or cheating. One expects that in the absence of a third party enforcer of vote-for-money contracts, market arrangements are sought, providing a cheap method to guarantee contract performance. This project is an empirical examination of those market arrangements. This project focusses on time patterns of contributions and whether these patterns are consistent with the hypothesis of a quid pro quo between legislators and PACs: it is shown that legislators who have incentives to cheat on an agreement with a PAC, specifying a vote-for-money exchange, are expected to receive contributions after performance of the agreed to task. The project is a study of the timing of contributions by PACs representing a number of industries. Detailed, previously unemployed data, specifying the date on which contributions were received by legislators, will be used in this project. Patterns of contributions over the entire election cycle will be examined and related to Congressional votes, primaries, and general elections. The distribution of contributions in months prior and after Congressional votes will be analyzed. Legislators who have incentives to renege on a vote-for-money contract are expected to receive contributions after the vote- if they voted in a PAC's interest. Differences in contribution patterns for votes that could be well anticipated and votes that could not be as well anticipated, will be examined. Further, leads and lags of election yea r contributions will be studied; for example, whether contributions in 1986 (an election year) reflected votes in 1985 or influenced votes in 1987.